Conference: Sixth International Symposium On Cytochome P450 Biodiversity, to be held in Los Angeles, California, August 20-25, 2002

The cytochrome P450 monooxygenase superfamily of heme-containing enzymes contains a wide
range of monooxygenase activities that make them critically important to virtually all
life forms. In recent years, they have been shown to be important in human growth and
development because they are involved in steroid biosynthesis and also in many
pharmacological areas because they are critical for the activation and/or detoxification
of drugs in human and vertebrate models. In a rapidly and ever-expanding area, they have
been shown to be important in insect and plant growth and development because of their
involvement in biosynthetic pathways for insect and plant hormones and in agricultural
areas because they mediate the metabolism of herbicides, insecticides, fungicides and
environmental pollutants.

Realizing the growing importance of this area of plant and insect P450 research, the
organizing committee for the International Symposium Series on P450 Biodiversity branched
from the more classical area of vertebrate P450 research represented in the Symposium
Series on Microsomes and Drug Oxidations to create an independent and focused series
devoted to microorganisms, plants and insects. For the Sixth International Symposium on
P450 Biodiversity: Functional Biochemistry & Molecular Biology of P450 Cytochromes in
Microorganisms, Plants and Insects, the organizers have endeavored to continue the
examples set in the five previous meetings in this series by providing platforms for the
presentation of approaches for expression analysis of model P450s as well as functional
analysis of the numerous P450s existing in these non-vertebrate systems. The goal is to
provide a forum for discussing leading research in the field through a single lecture
series of 48 presentations interspersed with scheduled poster presentations and ample time
for informal discussions. With this goal in mind, funds are requested to help support
travel expenses for competitively identified advanced predoctoral and postdoctoral
students.

The International Advisory Board and Scientific Organizing Committee for this Series
contains representatives from seven different countries including eleven from the United
States. The meeting will be held August 20-25, 2002 at the Conference Center on the UCLA
campus and hosted by Armand J. Fulco, Professor of Biochemistry at the University of
California, Los Angeles (UCLA). Dr. Fulco's research has focused on characterization of
bacterial cytochrome P450s through a variety of world-wide collaborations. It is expected
that attendance at this meeting will be approximately 200 with participation from the
United States, Europe and the Pacific Rim in approximately equal proportions.